Adaptive Fault Tolerance in Real-Time Systems (A proposal for cooperative activity)

Integrating adaptive fault tolerance and real-time systems is an important research area needed for many applications such as robotics, air traffic control, automated manufacturing, and space exploration. Typically, researchers work in one or the other of these two areas. We propose a cooperative activity between the University of Massachusetts which will supply the real-time expertise and CNR-Pisa which will provide the adaptive fault tolerance expertise. The main technical objective of the cooperation is to develop basic research results for adaptive fault tolerant systems that dynamically address real-time constraints, but at the same time provide system level, a priori minimum guarantees.